Undergraduate Materials Education Initiative: Emerging Electronic and Photonic Materials Synthesis & Processing Technology

The technology of electronic and photonic materials has an impact on and is of vital importance to most of the leading manufacturing industries and government laboratories in the United States. In fact, direct feedback from local industries indicates a pressing need for students with a strong background in new advanced electronic and photonic materials synthesis and processing technology. On-the-job training in high-technology industries costs enormous resources in time and money. For this reason Wayne State University will develop a unique sequence of two courses on materials synthesis and processing that builds on existing courses and covers new electronic and photonic materials of current and future importance. Key topics include plasma, ion beam, and laser deposition and processing technology; key electronic and photonic materials such as wide bandgap semiconductors, high-Tc superconductors, low dimensional structures, and associated new synthesis and processing techniques. Special attention will be paid to the incorporation of Computer Aided Engineering of processsimulation into the education process. This course sequence isalso designed to give real world experience using hands-onlaboratory experiments and directed projects in advanced electronicand photonic materials synthesis and processing. Evaluation willbe carried out by direct student feedback, together with review bya committee of faculty and industrial researchers. The developedcourse will be published as a text accompanied by a laboratorymanual and associated simulation software. The college ofengineering will sponsor a workshop after completion of course development to disseminate this course to other universities and institutions.